Three-Dimensional, Regional-Scale Modeling of the Processes Affecting Aerosol and Chemical Distributions in East Asia in Support of ACE-Asia

This project involves the use of numerical chemical transport models to study the processes controlling aerosol and chemical distributions in outflow from Southeastern Asia. This project is a component of the ACE-Asia field program. Specific activities will include: 1) comprehensive, three-dimensional, regional-scale modeling of aerosol/chemical interactions, 2) improvement and enhancement of emission inventories of primary aerosol and gaseous precursors needed to conduct detailed chemical/aerosol modeling in the region, and 3) providing three-dimensional forecasts of aerosol and trace gas distributions in support of the intensive field operations during ACE-Asia.